Precise Dating and Location of Prehistoric Earthquakes Using Tree-Ring Analysis

Our initial success in dating and locating a major earthquake, previously unknown, on the San Andreas fault was the result of extensive sampling and analysis over several years. The end product is a calendar date giving an exact interval between that event and an event in the historical record in 1857. The seismic implications are that strain release in the area may be episodic rather than periodic. It is herein proposed to further apply tree-ring dating to paleoseismology. Tree-ring analysis is virtually unique in being able to absolutely date site-disturbing events like earthquakes. It is the absolute dating of each and every annual ring prior to examination for disturbance that makes this application determine if there was an earlier event just to the northwest of our study area near Wrightwood, California; study the extent of the 1838 event in the Bay area; precisely date an event on the Little Salmon fault at the southeast end of the Cascadia Subduction zone; and to investigate an area in southern Italy where conditions seem very promising for locating undocumented ground ruptures in an active seismic region. The knowledge gained from our previous studies, including the disappointments, has equipped us to operate efficiently and to target better zones for analysis. Another step to optimize results is the inclusion of seismologists familiar with or working in the proposed study areas. The background information furnished by them aids in defining specific questions and in interpreting the seismic significance of any results.